Upgrading Meteorology Instruction and Research

Computer hardware will be purchased and used to enhance meteorological instructions and research at the University of North Carolina at Charlotte. The acquired hardware will run software supplied and supported by the UNIDATA Program Center (UPC). The equipment would be placed in the joint Earth Sciences and Geography departments. The common vision shared by these departments is to bring computer-based spatial analysis systems and enhanced, interactive meteorology instruction into both the undergraduate curriculum and research initiatives. The proposal is directed towards upgrading computer equipment for meteorological investigations that will have the capability of interfacing with a unix-based Geographic Information System. The faculty are prepared to immediately implement a host of physical-based applications to teach meteorological principles and access data that allows for applied research in drought analysis, water-resource planning, and development of predictive indices of air-pollution.